Incorporating Inquiry-Based Science Modules Involving an Environmental Scanning Electron Microscope into Preservice Teacher Education Classes

This project builds on the commitment of Iowa State University's College of Engineering and College of Education to the enhancement of the undergraduate preparation of future mathematics and science K-12 teachers. Through this Proof-of-Concept project, inquiry modules involving the WWW-controlled environmental scanning electron microscope (SEM) are developed and incorporated into three courses for pre-service elementary and secondary teachers, demonstrating the integration of WWW-controlled science content into existing teacher education courses. The modules support the learning through inquiry concepts and are consistent with the National Science Education Standards to improve the science pedagogical and content knowledge of pre-service teachers.

The two pilot modules in the areas of Failure Analysis of Materials and Structure of Organisms contain a problem-setting video, an inquiry workbook, a kit of materials, and supplementary SEM images available on the WWW homepage. The project complements the Iowa State Collaborative for Excellence in Teacher Preparation (ISCEPT) and the Mathematical Engineering Networking with Teachers of Real Science (MENTORS) activities.